Arctic Shelf and Basin Productivity

ABSTRACT

OPP-9815763
COTA, GLENN
OLD DOMINION UNIVERSITY

This project utilizes existing data on plankton abundance in the Chuckchi and Beaufort Seas to characterize the mechanisms responsible for regional differences of productivity in the Arctic Ocean. The role of shelf-basin exchanges of carbon will be examined and used in models once the role of light, oxygen, and nutrients on phytoplankton production is determined from the productivity patterns. The model will be used for assessing secular to decadal changes in productivity and exchange in the shelf-basin system in response to expected changes caused by global change. The results of this project will provide input for planning a large Phase 2 field program of the Shelf Basin Interactions project in 2002 in the same geographic area.